Workshop on Analysis and Modeling of Neural Systems

This action is to support a workshop on computational neurobiology. The workshop is to be held in San Francisco, California, July 23-24, 1991. The sessions to be held at the workshop will focus on biological issues in neural networks. Not only will leaders in the field be presenting information relevant to computational issues surrounding biological neural systems but a pre-workshop, tutorial session is planned to allow hands-on experience for mathematicians and theorists as well as for experimentalists. This workshop includes students and an informal atmosphere in which ideas can be discussed.